NSF/Alfred P. Sloan Foundation Postdoctoral Research Fellowship in Molecular Evolution for FY 1997

Abstract DBI 9750065 Daniel A. Barbash This action funds an NSF/Alfred P. Sloan Postdoctoral Research Fellowship in Molecular Evolution for 1997. These fellowships support studies involving the theoretical, comparative, computational, and/or experimental analyses of biological patterns and processes at the molecular level within the framework of organismic evolutionary change and adaptation. These studies also include the use of molecular data to address broader evolutionary questions. Each fellowship supports a research and training plan to be carried out in a sponsoring laboratory. The research and training plan for this fellowship is entitled "The genetic and molecular basis of species formation in Drosophila." The goal of this research is to identify genes important for speciation in the melanogaster species complex of the fruitfly. Small genomic regions are being crossed between D. melanogaster and D. simulans by genetic intogression. Introgressed regions are being examined for effects on hybrid sterility and viability, and the production of female mating pheromones. The feasibility of using these introgressed lines for further behavioral studies is also being assessed.